CAREER: MetaQuerier: Dynamic Ad Hoc Information Integration Across the Internet

This research will develop techniques to provide seamless and transparent access to databases on the deep web. In particular, the project will build a metaquery system that helps users to find and query the databases. The specific tasks will include source discovery and modeling, semi-structured unified schema construction, dynamic source selection, metaquery language definition, and metaquerier system development. The career development plan will include modernizing the database curriculum as well as promoting interdisciplinary research.